WOCE Hydrographic Program Sections Along 88 Degrees West and 150 Degrees West: SIO CFC Measurements

This proposal is to make chloroflouromethane (CFC) measurements on the World Ocean Circulation Experiment (WOCE) cruises in the southeastern Pacific on longitudes 88 and 150 west. The CFC tracers data are used to identify upper ocean formation processes, and are important in the assessment of ventilation and subduction mechanisms. These measurements and related tracer observations, along with hydrographic measurements will form the basis for the ocean circulation description which is an objective of WOCE.